Minority Graduate Research Honorable Mention: Lauro Sumoy

This special award will give Lauro Sumoy additional flexibility in pursuing his graduate studies and research initiation in cellular and molecular biology. This award will strengthen minority research participation in this area.